19th International Symposium on Field- and Flow-Based Separations: FFF2018

Title: Travel Support for the 19th International Symposium on Field- and Flow-Based Separations Conference

1655926 Baalousha
The 19th International Symposium on Field- and Flow-Based Separations Conference Series was established in 1989 by John Calving Giddings at the University of Utah, the inventor of the field flow fractionation technique. Field flow fractionation can be used for molecular and nanoscale separations, including separation of polymers, proteins, biomacromolecules, pharmaceuticals, drug delivery systems, and natural and engineered nanomaterials and molecules. These materials are complex, and thus separation, isolation, and purification of these materials is also complex. A better understanding of these materials and their properties will enable the isolation and commercialization of target materials with specific properties of interest. This conference series is unique and of particular importance to new investigators as there are no similar conferences that address the broad topic of field- and flow - based separation theory, method development, and applications.

This international meeting will take place May 14-17, 2018, in Columbia, South Carolina. Travel funds will enable speakers and students to attend the conference. The attendees will include various sectors of the research community including academia, industry, and federal research laboratories. The conference is organized into seven sessions over the course of three and a half days. The last day will include a general discussion symposium to discuss progress in the field and future directions. A training session will be held the weekend before the formal programming, of interest to graduate students, post docs, and other researchers looking to expand their expertise. The conference aims to educate attendees on current developments in the field, disseminate recent results and advances in molecular and nanoscale separations, and to determine future needs and directions in the field.